Research Experiences for Undergraduates in Chemistry at Mississippi State University

Dr. Judith L. Eglin and other members of the Chemistry Department at Mississippi State University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. The site is co-funded by the Chemistry Division and the Experimental Program to Stimulate Competitive Research (EPSCoR). For the period 1997-99, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. In addition to research projects, students learn through reading assignments, discussion of the literature, and oral and written communication of research results. Course credit is available. Recruitment of participants focusses on four year colleges in the region.